Molecular Analysis of the rbcS Multigene Family

Transcriptional regulation is an important control step in the developmental and organ-specific expression of the rbcS gene family in plants. Among plant genes, the rbcS promoter is one of the best characterized for cis-acting DNA sequence elements and transacting factors. In contrast, much less is known about the integration of the regulatory components into the developmental program. Using tomato as a model system, we have shown that the temporal and organ-specific activity of each rbcS promoter is correlated with changes in the complex interaction of DNA-binding proteins with specific DNA sequences that are shared or unique among the promoter regions. In tomato fruit, all but one of the rbcS promoter DNA-protein complexes disappear during the transition from young to ripening fruit. This proposal will investigate the mechanisms that control the developmental and organ-specific differences in DNA-protein interactions. The project will focus on five different DNA-binding proteins with unique binding characteristics. Experiments are presented to establish the function of the proteins in rbcS transcriptional control and to determine how the expression of the proteins is regulated in different organs and during fruit development. %%% This approach will provide novel and important insights into the mechanisms that control regulatory DNA-binding proteins during plant development.